State-Resolved Molecular Dynamics

This project, in the Experimental Physical Chemistry Program, is directed towards the study of dynamic processes in collisions and photodissociations. In both types of experiments, the effect of the orientation (alignment) of the reacting component relative to its collision partner or dissociation fragment will be investigated by the measurement of high resolution infrared absorption and emission. The measurements require very precise experimental techniques, of which Dr. Leone is one of the world's experts. The result of these investigations will lead to both the development of instrumentation to measure actual process of chemical reactions and a better understanding of the mechanisms of chemical reactions.